Elementary Particle Physics with the L3 Detector at LEP

This action will provide funds for the completion of work leading to the development of part of a particle detector now in use at the electron-positron colliding beam facility at the European Center for Nuclear Research (CERN) in Geneva Switzerland. The detector, known as L3, has recently reported a most significant measurement in physics, the determination of the number of neutrinos. The experiment, interpreted in the context of the currently accepted theory of the interactions of quarks and leptons, limits the number of families of quarks and leptons to precisely three. This investigator and his junior associates, designed, supervised the acquisition of and tested the electronics readout and monitoring system required for the identification and measurement of muons, one of the crucial components of the L3 detector.